SBIR Phase II: Evaluative Artificial Speech Intelligence and Autism Screener (EASI-AS)

The broader impact of this Small Business Innovation Research (SBIR) Phase II project will improve treatment for children with communication impairments. The project will develop a system that provides specialists and parents with reports that have accurate, efficient, and easy-to-understand speech and language evaluations with recommendations and suggestions, for better understanding the children’s communication challenges and how to solve them. It will bridge the gap between a clinical assessment and support at home, impacting clinical outcomes by providing a more accurate assessment of child language developmental needs. Consequently, this will result in more personalized education and treatment, particularly for diverse communities.

This Small Business Innovation Research (SBIR) Phase II project addresses pain points surrounding speech and language assessment with children with communication impairments. The child’s language use must be captured in a natural setting to obtain an accurate analysis. The solution is a flexible, self-customizing system using a trained AI approach to evaluate speech and language skills, then provide analytical feedback in key communication areas. To evaluate a child’s communication skills, the system collects a language sample based on natural adult-child social language interactions. Research objectives include: (1) improvement and development of machine-learning modules, specifically the language proficiency assessment, recommendation engine, recognition of child voices, recognition of accents and dialects, and intonation detection; (2) an autism screener development, to be used as a pre-diagnostic tool with eye-tracking technology; and (3) web and mobile application development for data collection by the child.